ICLS 2008: International Perspectives on the Learning Sciences: Cre8ing a Learning World

This conference proposal requests support that will assist 25 US doctoral students and 15 early-career post-doctoral researchers with travel expenses so that they may attend the International Conference on the Learning Sciences to be held June 25-28, 2008 in Eindhoven, Netherlands and so that they may participate in two pre-conference programs on June 23 and June 24, 2008. The Doctoral Consortium and The Early Career Workshop are designed specifically to provide special training and support for junior researchers in the Learning Sciences and to create international community among them. This grant will also provide support for senior US faculty who are serving as US coordinators and facilitators for these programs, and for mentors who will participate in the program as faculty.